Computer Simulation of Undergraduate Astronomical Observations

Astronomy is a highly popular science for non-science majors and this provides an efficient route for presenting scientific techniques and methodologies to such an audience. There are however serious difficulties e.g. weather and sky conditions in adding an effective lab experience for these students. The Astronomy Program at the University of Maryland has developed a series of computer labs which simulate astronomical observations. These are currently limited by available memory and by the resolution of the monitors in use. It is proposed to develop a more sophisticated system which will provide a more realistic simulation which can be used to demonstrate more sophisticated observing scenarios.